SBIR Phase II: Diffusion Resistant, High Purity Wafer Carriers

Materials Focus Inc. will develop noncontaminating wafer carriers with improved mechanical performance and which are less expensive than current carriers, and which will be invaluable to the semiconductor industry. This will be accomplished by developing high purity, homogenous SiC-MoSi2 composites which will be used as diffusion components.